CASPER: Enabling Discovery Through Open Source Digital Instrumentation for the Radio Astronomy Community

The Collaboration for Astronomy Signal Processing and Electronics Research (CASPER) develops and maintains a collection of open-source hardware and software for radio astronomy research. This program leverages past CASPER work, in tandem with the current developments in the super-computing industry, to provide the infrastructure to cost effectively build the next generation of astronomical instrumentation. The low cost-of-entry associated with building instruments with CASPER technologies allows students and early career scientists to gain firsthand instrument design experience using the same equipment and tools deployed at multi-million-dollar observatories. Instruments range from small experiments in undergraduate teaching labs, to facility supported equipment for some of the largest, most advanced telescopes ever built. CASPER instruments have been used to discover new planets; to help make the first images of a black hole using the NSF’s Event Horizon Telescope; and to discover many new pulsars and fast radio bursts, recently been used to ‘weigh’ the universe. CASPER instruments utilized by the NSF’s NANOGrav collaboration recently discovered our whole universe is wiggling like jello due to a background of low frequency gravitational waves. CASPER infrastructure supports several of the radio astronomy programs top ranked by the Academy of Sciences in the decadal review, such as detecting how and when the first stars and galaxies formed. Outside of astronomy, CASPER tools are used in brain research, genomics, radar applications, and neutron and magnetic field imaging.

CASPER research has revolutionized the cost and time scale for development of radio astronomy signal processing instrumentation. CASPER owes its success to its software tools and libraries, which were designed with the goal of streamlining instrument development. Development in this program facilitates next-generation instrumentation for radio astronomy and other applications needing high performance in-situ processing. This includes new wide-band spectrometers and transient-detection machines, correlators for large antenna arrays, and millimeter wave cameras. The program will add support for several modern, oﬀ-the-shelf FPGA processors in the CASPER tool flow environment; develop open-source libraries for key signal processing infrastructure, such as new wide-bandwidth ADC interfaces; and implement containerized references of CPU and GPU processing pipelines. To help observatories and research groups modify these reference designs for their applications, example instrument designs will be developed, including spectral imaging (correlation), beamforming, RFI mitigation, pulsar searching and timing, fast radio burst searching, SETI, VLBI, and wideband high-resolution spectroscopy. The program will facilitate the transfer of knowledge by workshops, the CASPER email list, web-based tools and libraries, and comprehensive documentation to lower the barrier of entry to student and novice instrument designers.